GRC/GRS on Biomineralization: Fundamental Biotic and Abiotic Mechanisms

This award provides support for the travel and conference registration fees of students and young investigators as participants in the 2018 Gordon Research Conference (GRC) and Gordon Research Seminar (GRS) on Fundamental Biotic and Abiotic Mechanisms of Biomineralization being held in New London, New Hampshire, July 29 - August 3, 2018. The meeting will allow young investigators to network with establish researchers to discuss cutting edge research about new ideas and future concepts of how to harness or mimic designs and the methods used in nature to achieve them. This GRC in Biomineralization will focus on discussions of a the fundamental and applied aspects of biomineralization, bringing together chemists, physicists, biologists, geologists, medical doctors, and engineers who would otherwise not overlap on the conference circuit, in a setting that allows new ideas and insights to be shared and applied across interdisciplinary boundaries.

The conference will include a broad range of researchers, from graduate students and post-doctoral trainees to world leaders in this area, to disseminate the latest advances and develop connections to advance this key field of research moving forward. Award funds will be used to support students and trainees so that they can present their research and develop the research network necessary to advance both science and their careers.